Support for the 2003 Conference on Super Intense Laser Atom Physics (SILAP 03)

This award provides support for student travel to and participation in the 2003 Conference on Super Intense Laser Atom Physics (SILAP 03). The conference is being held in Dallas, Texas, during Novermber 16-19, 2003. Student participation will be heavily centered on poster presentation.